Mathematical Sciences: Analysis in Spaces of Analytic and Harmonic Functions

Axler and Shapiro will continue their study of the connection between classical function theory and operator theory. Of particular interest will be the association between function theoretic properties of an analytic mapping and operator theoretic properties of the corresponding composition, Toeplitz, and Hankel operators. Operator theory is that part of mathematics that studies the infinite dimensional generalizations of matrices. In particular, when restricted to finite dimensional subspaces, an operator has the usual linear properties, and thus can be represented by a matrix. The central problems in operator theory is to classify operators satisfying additional conditions given in terms of associated operators (e.g. the adjoint) or in terms of the underlying space. Operator theory underlies much of mathematics, and many of the applications of mathematics to other sciences.